Linking hydroecologic form and function in estuary-wetland systems

Estuarine wetlands are being degraded and lost at a tremendous rate worldwide. Yet there is a lack of science to support consistently successful wetland restorations and consequently many restorations fail for unknown reasons. The premise of this research is that the health of an estuary is intimately linked to its surrounding landscape, particularly shore-fringing wetlands. This research will analyze 96 major salt marshes surrounding San Francisco Bay using a combination of field data, remote sensing-based pattern recognition, and flow and transport simulation. The marshes range in age from 10s to 1000s of years old, thus enabling statistical assessment of whether marsh hydroecologic complexity is related to marsh development and age, and whether the range of marsh forms is consistent with theories of natural marsh development. Analysis is aimed at determining the relative importance of surface water residence time as it relates to sediment accretion potential, groundwater and solute residence time as a measure of chemical sequestration potential, surface water-groundwater exchange linking wetlands to the estuary, and plant-water interactions.

We test two main hypotheses: 1) Site-to-site variations in estuarine salt marsh channel and vegetation patterns (form) result in site-to-site identifiable variations in wetland processes (function). 2) The cumulative form of the marsh fringe around an estuary functions analogously to the hyporheic zone of a riparian system, enhancing long fluid and solute residence times in the coupled marsh-estuary hydrologic system. The first hypothesis is tested by analyzing a set of contrasting marsh sites. Preliminary analysis suggests at least five classes of hydroecologic forms present in the San Francisco estuary. Representative sites for analysis will be identified from the sample of 96 salt marshes using object-based remote sensing image analysis and statistical characterization of channel and vegetation patterns. Statistical analysis will test if the complexity of marsh form is correlated with site restoration, age, or other characteristics. The second hypothesis is tested using a large-scale model coupling estuarine circulation with surface and near surface hydrology of the estuarine wetland fringe. Groundwater simulation will represent subsurface water storage and exchange with the estuary, subsurface solute migration and mixing, and evapotranspiration. Estuarine flow simulation will represent shallow water flow behavior in the Bay. The coupled model will quantify cumulative estuary-marsh fluid and solute exchange and residence times.

The broader impact of this research is an improved scientific framework linking the desirable form of the wetland, which is typically engineered during restoration by constructing shaped channels and planting vegetation, to its function, which involves surface water-groundwater exchange, plant water use, and spatially variable hydrological processes. In addition, estuarine and wetland science and education will benefit from a new database of salt marsh attributes by providing significant educational potential of further estuary-wide comparative analyses. With the assistance of the Stanford School of Earth Sciences outreach coordinator, this work will improve local education and restoration/management resources for San Francisco regional salt marshes through a map-based exploration tool and a set of brochures on salt-marsh hydroecology.